Research Experiences for Undergraduates

This project will support 8 students to participate for 11 weeks in Washington University's summer undergraduate research assistantship program during the summer of 1991. Students will be involved in the research of faculty from the Advanced Networking Group, the DNA Mapping Group, the Center for Intelligent Computing Systems, the Concurrent Systems Group, the Computer Visualization Group, the Medical Informatics Group, the Compression Research and Development Group, the Office of the Network Coordinator, the Electronic Radiology Laboratory, and the Earth and Planetary Remote Sensing Laboratory.